1998 Oceanographic Instrumentation

9731554 Freitag This award to University of Rhode Island will provide instrumentation for oceanographic research for use on R/V Endeavor, a research vessel operated by the university's Graduate School of Oceanography as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired is a towed, undulating sensor package for oceanographic and biological measurements, as well a controls and computer interfacing. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly in the Northwest Atlantic Ocean, in 1999 and future years. ***